Synthesizing Energy Efficient Circuits and Systems

Most of the work in the field of logic synthesis has concentrated on the topics of logic minimization and synthesis for testability. While both of these issues are of great importance, it seems natural to go beyond these applications. This effort aims to expand the current applications of logic synthesis to include the domain of synthesis for reduced power dissipation. The work here is based on the assumption that switching activity, the number of internal nodes that are charged or discharged when a new set of inputs is applied to the system, is a strong indicator of power dissipation in static CMOS structures. The proposal builds on some novel results obtained in the synthesis of two level logic circuits, such that they exhibit, optimal switching activities. The research advocated utilizes these results to explore procedures for the energy efficient synthesis of arbitrary combinational logic functions. The methodology employed in the study is based on a rigorous analytical approach, with simulation results and measurements on actual fabricated circuits being used for model verification and refinement. It is widely known that clocking frequency seriously effects the power dissipated in a system. The utilization of double-edge- triggered flip-flops, which trade area for clock frequencies operating at half the value, represent a relatively inexpensive way to reduce energy dissipation and naturally complements research in low-power logic synthesis. This work advocates studying techniques to ensure that the systems built are fully testable. The methods of Boolean space expansion, and modified input storing elements, are being explored to obtain full testability. The goal of this research is the development of a new synthesis tool which will enable users to easily implement digital functions with reduced energy dissipation, while maintaining full testability. When an integrated circuit is operating in the testing mode, the energy consumption may be far gr eater than during normal operation as many internal nodes which do not usually switch are being tested. The proposed research will ensure that under testing conditions the energy consumption of the system is minimal thus avoiding damage to the circuit.